Conference on Complex Analysis, Differential Geometry, and Partial Differential Equations; May 2-6, 2005; New York, NY

Conference on Complex Analysis, Differential Geometry, and Partial Differential Equations

This is a week-long conference on the many aspects of
complex analysis, differential geometry, and partial
differential equations centered around the theme of
canonical metrics in geometry. Of particular importance
are recent developments such as multiplier ideal sheaves,
Bergman kernels and asymptotic stability in geometric
invariant theory, Hamiltonian dynamics and complex Monge-Ampere
equations, geometric heat flows, and energy functionals.

Canonical metrics involve typically a non-linear system
of partial differential equations, where the unknown is a
tensor. They arise from geometry and topology, but they
are also closely to basic equations from theoretical
physics such as Yang-Mills equations and Einstein's
equations in general relativity. They are usually very
difficult to solve, but there has been recently an influx
of new ideas from many different directions. This conference
will help cross-fertilization of ideas between the leading
experts, and introduce a new generation of young students
and postdoctoral researchers to problems and methods in the
area.